CAREER: Stochastic Dynamical Models in Microbiology

The research aspect of this CAREER project concerns the application of
stochastic modeling and asymptotic techniques toward two problems in
microbiology which can be cast within the framework of stochastic
motion in random environments. First, a stochastic model will be
developed to represent how water molecules interact with the surface
of a protein. Water plays a crucial role in the functioning of
proteins, and must be accounted for in molecular dynamics simulations
which attempt to predict the dynamics of a protein molecule. The
detailed inclusion of water molecules in such simulations is however
very costly and limits the practical scope of these simulations. The
stochastic model for the water-protein interaction to be
developed in the research is intended to
provide a more efficient representation of the effects of water and
thereby accelerate protein dynamics calculations. It will consist of
a lattice model parameterization of the chemistry and geometry of the
protein surface and a generalized diffusion process for the water
molecules moving in a potential induced by the surface lattice model.
A second component of the proposed research is an extension of the
analytical and computational methodology for modeling molecular motors
to include more physical realism. Asymptotic and stochastic
techniques will be employed to characterize molecular motors operating
in multiple dimensions and/or with multiple degrees of freedom, and to
incorporate random modulations in the force potentials. The Immersed
Boundary computational method, recently extended to include thermal
fluctuations, will be used to simulate molecular motor processes in a
way which incorporates in a natural way osmotic effects and the
dynamics of the fluid medium.

More broadly, this CAREER project comprises a research program and
course developments at the undergraduate and graduate levels which
will apply the principal investigator's prior experience in turbulence
modeling to new problems in microbiology, and provide more systematic
opportunities to communicate knowledge and problem-solving
approaches to undergraduate and graduate students. The research
objective pertaining to the interaction between protein and water
molecules has the potential for providing a significant speedup in
simulations of protein dynamics by reducing the cost of modeling the
effects of the water. Accelerated protein dynamic simulations would
expedite both our basic understanding of protein dynamics and the
technological development of drugs and devices designed to interact
with proteins. Analytical and computational research on molecular
motors will aim to improve the physical understanding of how
biological cells move and transport material within themselves. The
broader impacts of the project include the interdisciplinary training
of graduate students in mathematical and computational modeling in
microbiology, the introduction of new graduate courses on stochastic
modeling, the renovation of an undergraduate course on probability
theory to incorporate modern research
efforts and issues as contexts for the learning of mathematical
techniques, material to be posted on the World Wide Web to disseminate
these pedagogical applications, and broader opportunities for
undergraduate students to gain experience in mathematical modeling.